West Coast Operator Algebra Seminar 2014

This awards provides funding to help defray the expenses of participants in the conference "West Coast Operator Algebra Seminar 2014" that will be held November 1-2, 2014, on the campus of the University of Denver.

This conference is the twenty-second installment of the West Coast Operator Algebra Seminar (WCOAS), a series that annually brings together a diverse group of mathematicians whose primary research interests are in various facets of the theory of operator algebras. A sampling of the topical foci of the 2014 event is given by the following: the Elliott program for the classification of C*-algebras; applications of operator algebras to mathematical physics; noncommutative geometry; the Baum-Connes conjecture; free probability and its applications; subfactors and their invariants. The conference program provides ample opportunity for graduate students, postdocs, and other young scientists to present their work.